Studies on Pseudo-holomorphic Maps

Abstract for DMS - 0104331

This project involves analytic aspects of the theory of
pseudo-holomorphic curves. The aim is to develop
effective methods for computing Gromov-Witten invariants of
symplectic manifolds and enumerative invariants of algebraic
manifolds. This work builds on the P.I.'s recent work with E. Ionel
on the `sympletic sum formula' for GW invariants. The first project
involves extending the sum formula to the `modified GW invariants'
recently defined by the P.I.'s student Junho Lee. This would make the
formula applicable to K\"ahler surfaces with $p_g>0$ where there are
important conjectures that are not currently approachable by GW
methods. The second project is a symplectic approach to understanding
physicists' predictions about the generating functions which count
curves in Calabi-Yau 3-folds. The goal is to prove the predicted
formulas by adapting some analytic methods C. Taubes developed to relate
the Seiberg-Witten and Gromov invariants. The last two projects also relate
to the sympletic sum formula. One seeks formulas expressing the
relative Gromov-Witten invariants of a pair $(X,V)$ in terms of the
usual GW invariants and the descendant classes of $X$ and $V$. The
other proposes extending the sum formula to a more general type of
symplectic sum which occurs in algebraic geometry when one considers
projective linear systems.

One of the most basic problems in mathematics is to determine the
solutions of a system of polynomial equations, and an important first
step toward that goal is to determine the NUMBER of solutions. There
is an explicit formula for the number of simultaneous solutions of a
set of n polynomials in n variables. One can then ask for the
number of solutions for n polynomials in n-1 variables. In this
case there is a free parameter, so the locus of solutions will be a
union of curves. How many? This question has been systematically
studied for 100 years, but only a few special cases
were solved. Then, around 1990, it was realized that these problems
can be translated into symplectic geometry, and then tackeled using
the powerful machinery of mathematical gauge theory. (Gauge theory,
originally part of physics, has been the focus of many very fruitful
interactions between mathematicians and physicists over the past
twenty years; it includes Yang-Mills and Seiberg-Witten theory, and
String theory). This `Gromov-Witten invariant' approach led quickly
to formulas answering some of the original enumerative problems, and
there are clear indications that there are more to be discovered.
This project is aimed toward further developing the symplectic gauge
theory in order to produce
additional general formulas and to meld these formulas into a coherent theory.